Student Travel Support for the 41st IEEE Conference on Decision and Control (CDC-02); Las Vegas, Nevada; December 10-13, 2002

0233369
Jabbari

The 41st IEEE Decision and Control Conference (CDC02) is the premiere, annual international conference on systems and automatic control research. It is sponsored by the IEEE Control Systems Society and conducted in cooperation with the Society of Industrial and Applied Mathematics, and the Institute For Operations Research and the Management Sciences. This year it will be held at the Venetian Hotel, in Las Vegas, Nevada, December 10-13, 2002. Pre-conference wrkshops will be held on December 8 and 9, 2002. The Conference provides an excellent opportunity for researchers to present the latest developments in the field, promote new ideas, and discuss and evaluate past accomplishments. The technical content of the Conference has traditionally been of the highest quality drawing leading scientific researches from all over the world. The Conference typically draws some one thousand participants each year. Such a venue is of special importance for the training of new researchers and graduate students in systems and control.